Mathematical Sciences: Singularity Behavior in Some Geometric Variational Problems

9404336 Hardt The research is in the general area of geometric variational problems and in particular focuses on the study of energy- minimizing maps of Riemannian manifolds. The singularities of these maps and generalizations to higher order energy densities will be considered. The research has applications to liquid crystals and crystalline structures in materials science. ***